SGER: Field Surveys of the 2004 Tsunami in the Western Indian Ocean

This SGER proposes a quantitative survey of the run-up and inundation of the 2004 Sumatra tsunami on the Western shores of the Indian Ocean, specifically in Madagascar and Oman. This work is necessary to complement the work of various international tsunami teams around the Bay of Bengal, in Somalia and on the islands of Reunion, Mauritius and Rodrigues. It is imperative that the work be carried out in the Summer of 2005, before climatic conditions wash away some of the watermarks, and while memories of the event are still fresh. In terms of broader impact, by involving local scientists and students, this project will have an important educational component in the host countries, and will contribute to raising the awareness of their populations to tsunami hazard in this part of the world.